TQO Improving Quality Transformations in a Dual Workforce, Research and Development Environment

This research will examine the implementation of quality transformation in a public sector research and development work environment (i.e., NASA) consisting of both in-house and contract employees. Members of the work force have diverse cultural backgrounds, a multitude of different leaders, and are subject to widely varying motivators. The unit of focus and analysis will be project teams that include both civil servants and contract employees, resulting in a mix of disciplines as well. These factors result in an environment in which it is very difficult to develop teamwork. The objective of the research is to develop a multi-dimensional model for quality transformation in a diversified dual work force. The model will identifydrivers and constraints associated with quality transformation, and will include evaluation tools, methods for implementing quality changes, and recommended measures of effectiveness. Organizational, demographic, and qualitative data will be collected and used to design survey instruments for administration to team members. Project outcome measures will be included in the analysis. The project includes an advisory panel consisting of the NASA Lewis Research Center Quality Council, as well as bothpermanent and contract NASA employees.